Mathematical Sciences: Dynamics and Topology of Invariant Sets

9404145 Barge The research covers studies of rotational behavior for invariant irreducible plane continua using methods of topological dynamics. Minimal sets of Denjoy type and periodic orbits will also be investigated. The research has potential applications to other areas of dynamical systems and chaos theory. ***